United States Global Change Research Program

The funds provided to this CSA will support the U.S. Global Change Research Program Coordination Office in serving, coordinating, and representing the USGCRP as an integrated, coordinated program. The objective of this office is to be the coordinator of the interagency process. This involves a diverse array of activities to carry out the mission given to the Subcommittee on Global Change Research (SGCR) and the U.S. Carbon Cycle Interagency Working Group that are not strictly within the purview of any of the individual participating agencies.